Workshop on Critical Issues in Computer Architecture Research, May 21, 1996, Philadelphia, Pennsylvania

The last decade has seen extraordinary technological, intellectual, and market developments that have shifted many assumptions underlying research in computer architecture. Promising avenues for future research will doubtless lead in directions different from those of the past. This project will convene a group of approximately 15 experts from industry and academe, who will discuss this and related issues in a one-day workshop. The proposed date is May 21, 1996, the day before the start of the ACM/IEEE international Computer Architecture Symposium to be held in Philadelphia, PA. The product of the workshop will be a final report published on the World Wide Web.